Collaborative Research: Generalized Finite Element Methods and Meshless Methods: Mathematical Analysis and Applications

Models based on partial differential equations are widely used in
science and engineering, and numerical methods for their solutions are
of central interest. In the last several years, there has been steadily
growing interest in two such methods: Generalized Finite Element
Methods and the closely related Meshless Methods. They have become a
focus of development and application -- especially in the engineering
community. These methods generalize the Finite Element Method, and are
of interest mainly for two reasons: (i) they are not based on a mesh,
or use a mesh only minimally, and hence avoid some of the problems in
meshing complicated domains; (ii) they permit the use of non-polynomial
approximating functions, and hence are applicable to problems with
special features, whose solutions are not accurately approximated by
polynomials. This flexibility has, in the past few years, been effectively
used in handling certain important problems. But a deep and precise
theoretical understanding of these methods is needed to broaden their
applicability, in particular their efficiency and robustness, to complex
problems in engineering that otherwise cannot be solved with existing
methods, for example, the Finite Element Method.

This project involves careful and precise mathematical study of various
aspects of Generalized Finite Element and Meshless Methods. The broader
impact of this study will be reflected in the applicability of these
methods to a wide range of complex problems of technical and societal
importance; for example, problems with multiple scales. Multiscale
problems are increasingly important; they include the problems of
composite materials and flow through porous media. Finding robust,
efficient, and reliable approaches to solve these problems is one of
the challenges of modern technology. Another impact of the proposal is
the training of graduate students in a vital, cutting edge area. Their
involvement in this project will not only help them become experts in
the mathematical underpinning of these important methods, but will also
give them the rare first-hand experience in working with practical
engineering problems.